Summer Program in Solid State Chemistry for Undergraduate Students and College Faculty

It is proposed that the PI be Kenneth Poeppelmeier (Northwestern) and an executive committee consisting of J. M. Honig (Purdue), Jeremy Burdett (Chicago), Robert McCarley (Iowa State) have the major responsibility of administering the grant. The funds from this grant would be made available to cover travel and living expenses of student and faculty participants during the entire period of the program, and travel and subsistence for scientists chosen as lecturers during the first week of the program. Funds also would provide for travel of all student and faculty participants to return to Northwestern at the end of the summer period, when each participant can present a report on the results of his or her project in a symposium format. This symposium would be held over two day period, and would be vital in furthering the participant's overview of the program, their ability to organize and report research results, and to impart a professional orientation to further work in the field of solid state chemistry.